INTER- AND INTRA-ANNUAL VARIABILITY IN AN INTERACTIVE OCEAN-ATMOSPHERE CLIMATE SYSTEM

This project will investigate the earth's climate variability in an interactive ocean-atmosphere system as modeled by a low-horizontal-resolution general circulation model that includes a mixed-layer ocean component. The focus will be on the inter- and intra-annual variability aspects of the annual cycle. Very long model simulations (in the range of 50 to 100 years) will provide substantive statistical representations of the relevant variability events. Analyses will focus on assessing (1) SST variability characteristics, (2) the relationship between atmospheric circulation anomalies and SST anomalies and (3) the role of ocean-atmosphere energy exchange in forcing variability. Additional simulations which include cases with prescribed sea surface temperature or atmospheric conditions will help in determining cause/effect relationships between SST and atmospheric variability. On time scales beyond a few weeks, the oceans strongly influence the earth's climate. A productive approach to studying the processes leading to that influence and the feedback to the oceans by the atmosphere is interactive models. It is expected that the study will (1) provide understanding of the role of thermodynamical ocean-atmosphere interactions in producing tropical and extratropical variability of climate, (2) help in the assessment and interpretation of more complex systems which incorporate internal ocean processes and dynamic ocean-atmosphere interactions, and (3) provide insight into fundamental aspects of climate variability such as predictability and cause/effect relationships between the ocean and the atmosphere. This research is relevant to the World Climate Research Program's Tropical Oceans-Global Atmosphere Program (TOGA).